North American Symposium on Chemical Reaction Engineering (NASCRE 1)

Abstract - Luss - 0002188

The North America Symposium on Chemical Reaction Engineering (NASCRE), to be held in January of 2001, is being planned to provide a forum at which academic and industrial experts, especially young ones, will be exposed to the frontiers of chemical reaction engineering. The topical meeting will focus on six topics and consist of six plenary and six oral presentation sessions. All oral presentations will be limited to these pre-determined six topics; contributions on other topics will be presented in two poster sessions. The six topics will be:

Biochemical reaction engineering
Combinatorial catalysis
Fuel cells for stationary and mobile applications
Polyolefin reaction engineering
Synthesis gas and chemicals via novel reactors
Multi-phase reactors